Mathematical Sciences: Approximation Theory for Variational Problems with Applications to Random Composites and Stochastic Optimization Problems

This research is concerned with an approximation theory for variational (optimization) problems and its application. A major effort of the research will go to the development of a quantitative theory that would be more directly applicable in a numerical environment and would provide a means for calculating error estimates. Of particular interest is the application of the theory to a stochastic environment, including the computer implementation of solution procedures. Three application areas have been singled out for detailed study in this project: stochastic optimization problems, estimation theory in statistics, and random operator equations that model conductivity or flow through random composite materials. The research is in the general area of applied mathematics with applications to the theory of statistics.